Dissertation Research: Local Context of Global Cultural Influences

This project involves dissertation research by a student of cultural anthropology from CUNY Hunter College. The project will study the production of TV programs in Shanghai in order to understand the media's role in portraying symbols of modern Chinese culture. Using ethnographic methods of participant observation and structured interviewing, as well as textual analysis, surveys and documentary research, the project will evaluate how some factors from the West penetrate the cultural consciousness of Chinese media producers while others are resisted or transformed. The study will help us understand how television programs influence local cultural identities with respect to the national center as well as the international cultural centers. This sort of research is important as transnational influences become more important. Understanding how local intellectuals function as cultural brokers while trying to resolve their cultural identity ambiguities between East and West will help members of the two culture areas deal successfully with each other.